NUE: Nanotechnology for Manufacturing Flexible Electronics

This Nanotechnology Undergraduate Education (NUE) in Engineering program entitled NUE: Nanotechnology for Manufacturing Flexible Electronics under the direction of Dr. Howard (Hao) Wang, SUNY at Binghamton, will develop a systematic undergraduate nanotechnology educational program in the School of Engineering with a focused theme of flexible electronics manufacturing and applications. The FlexE-NUE will address the educational needs in the great Nano/FlexE adventure at the undergraduate level through a series of courses, design projects, seminars, research and cyberinfrastructure experiences, as well as domestic and international collaborations.